High-Energy Femtosecond Fiber Lasers by Self-Similar Pulse Evolution

Intellectual Merit

A group from Cornell University will perform theoretical and experimental
studies of a qualitatively new approach to ultrashort pulse-generation:
self-similar pulse shaping. This regime is remarkable because
monotonically-evolving, asymptotic solutions of the governing wave equation
exist inside a laser, despite the requirement that the field reproduce
itself after each traversal of the cavity. Self-similar pulses exist with
much greater energies than can be produced stably by other means.

Specific objectives of this work include
* the development of complete understanding of a mode-locked laser in which
the pulse undergoes large changes as it traverses the laser cavity
* optimization of the performance of self-similar fiber lasers
* the demonstration of femtosecond fiber lasers that offer performance
comparable to, and even exceding, that of solid-state lasers

Broader Impacts

The impact of the proposed research extends well beyond fiber lasers. The
concepts developed in this project will bear on a range of topics, from the
fundamental science of nonlinear dynamical systems to commercial laser
instruments.

Fiber lasers that generate femtosecond-duration optical pulses have great
potential for expanding the range of short-pulse optical techniques into
real-world applications such as machining, and diagnosis and treatment of
disease, for example. Self-similar fiber lasers have clear commercial
potential. The performance of solid-state lasers can also be enhanced
substantially by this concept.

The student working on this project will gain experience ranging from theory
and numerical simulations to the most technical aspects of fiber optics.